Function of Thioredoxins in Cyanobacteria

Thioredoxin is a redox protein implicated in reducing functions in a wide variety of cell types, and is recognized as playing significant roles in metabolism and survival. The functions of this enzyme(s) in cyanobacteria is here focused on the physiological functions of two distinct forms of the enzyme present in the cyanobacteria and in chloroplasts of green plants. The effects of nitrogen and sulfur starvation on the amounts of these enzymes present in cells will be assessed, as will also the function in deoxyribonucleotide biosynthesis. Molecular genetic aspects of the two thioredoxins will be studied in relationship to function in photoautotrophic growth. Seeking a more thorough understanding of the functions of two forms of the enzymes known as thioredoxins is the object of this research. These enzymes are present in green plant chloroplasts and in the cyanobacteria, the latter the focus of this project; the functions effected by each form is unclear and should be clarified by the approaches to be employed. The role of these enzymes in regulation of cell activities in a wide variety of organisms is being recognized as of increasing significance.